Society for Conservation Biology Request for Graduate Student Travel for an annual meeting in Sydney, Australia, July 13-16, 1998.

9800172 Boersma This award provides funds to support the travel of 15 graduate students and postdoctoral fellows to attend the Society for Conservation Biology annual meetings in Sydney Australia. Travel funds will be awarded based on need, quality and significance of research to conservation biology, and other selection criteria. Participating in the annual meeting is considered to be an important aspect of academic training. This award will facilitate the interaction of 15 young scientists from the US with an international community of conservation biologists.